PostDoctoral Research Fellowship

This award is made as part of the FY 2023 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Joseph S. Jackson is " Topics in mean field game theory." The host institution for the fellowship is The University of Chicago, and the sponsoring scientist is Panagiotis E Souganidis.